Light Scattering Studies of Fractal Soot Aggregates in Flames

The objective of this proposal is to develop static and dynamic light scattering techniques for the characterization of fractal soot aggregates in flames. Current fractal-based theories for the optical properties of soot particles will be incorporated in the proposed techniques. The results from several static scattering/extinction measurements on soot clusters will be compared to soot clusters selected from flames and viewed by an electron micrograph. The Photon Correlation Spectroscopy, a dynamic technique to be further developed by Dr. Sorensen during this project. The research topic is important for scientist understanding of soot formation and of light scattering diagnostics, and has engineering applications in combustion and environment.